Electronics and Communications Systems Services for Research, Design, Development, and Management in Support of the United States Antarctic Program

ABSTRACT

WEBB
0138572
In accordance with the Memorandum of Agreement (MOA) between the Space and Naval Warfare Systems Center, Charleston (SPAWARSYSCEN) and the National Science Foundation (NSF) dated September 1998, SPAWARSYSCEN is responsible for providing Air Traffic Control services, Ground Electronics Maintenance operational support services, and operational Meteorology observations and forecasting support services to the U.S. Antarctic Program. In addition, SPAWARSYSCEN provides engineering and Executive Agent support services. These include program management, planning, cost estimating, design, procurement, installation, integrated logistics support, configuration management, budgeting, and cost reporting. This award provides direct funding to SPAWARSYSCEN for this support

This is the first funding award for fiscal year 2001 in the amount of $4,336,765 and will provide operating funds through September 2001.
The program manager recommends this award.